EAGER: Characterization and Modeling of Nanoscaled Semiconductor Devices

EAGER: Characterization and Modeling of Nanoscaled Semiconductor Devices
Marvin H. White
Lehigh University
Abstract
We propose a EAGER program to apply a new approach to study low-field carrier mobility
in high-K, nanoscaled, semiconductor MOSFET devices ? devices with Coulomb
scattering centers in the high-K dielectrics. This concept will permit the evaluation of lowfield
carrier transport in nanoscaled devices with a two-terminal structure rather than the
fabrication of a three-terminal device structure. We will use two hetero-insulator device
structures: (1) a nonvolatile, “charge-trap”, nanoscaled MANOS semiconductor memory
device with programmable charge storage and (2) a metal gate, high-K, nanoscaled
MOS transistor with fixed charge in the high-K dielectric.
The intellectual merit involves the integration of research and education to explore lowfield,
carrier transport in high-K nanoscaled devices with a simple two-terminal
conductance and capacitance measurement, thereby, alleviating the need to fabricate
three-terminal devices complete with ohmic contacts. We will characterize the influence
of Coulomb charge in experimental high high-K devices on carrier transport by varying
the sign, magnitude and position of the charge. Two terminal measurements will be
compared with three-terminal measurements on completed device structures. The
experimental and theoretical studies involve device physics, chemistry, materials
science and modeling at the nanoscale.
The broader aspects in our program will advance diversity in the nanoelectronics
workforce and provide intellectual technology transfer, integration of research and
education, and promotion of partnerships with the industrial sector of the economy. We
have developed excellent educational and outreach programs to increase diversity with
opportunities in nanoelectronics, especially semiconductor devices ? an important area
to maintain US leadership in a global economy. Our research provides an excellent
vehicle for minority student outreach and partnerships with industry.
The transformative nature of our research lies in a new approach to model low field
transport with simple two-terminal structures, which can be easily fabricated in the
laboratory without extensive photolithographic equipment. The concept is applicable to
the study of carrier transport in a broad range of emerging nanoscaled devices and will
aid rapid and innovative advances in the technology